ROW: Measurement and Analysis of Biaxial Strength of Fiber Reinforced Composites

This ROW Research Initiation Award is made to support the study of the onset of yielding under biaxial states of stress. In particular, experimental results obtained from tubular specimens will be compared with those obtained from plate like ones.